NER: Intracellular Regulation via Multivalent Nanoprobes

0403971
Vazquez
This exploratory research proposes to develop quantitative measures of the changes in one cell function, chemotaxic migration, induced by the multivalent binding of one adapter protein needed to initiate chemotaxic signal cascades, Growth Factor Receptor Bound-2 (GRB2). Measurable changes in cell behavior will lead to the exciting possibility of using multivalent nanoprobes to alter or direct cell behavior as a new means
for therapeutic intervention.